"Extension of Evaluator Activities at the Center for Dielectric Studies"

9370608 El-Aasser This supplemental award provides the U.S. Department of Energy's Environmental Restoration and Waste Management Office with a non- voting membership in Lehigh University's Industry/University Cooperative Research Center for Polymer Interfaces. The Program Manager recommends Lehigh University be awarded $10,000 for one year with funds provided by the U.S. Department of Energy.